Arkansas Spring Lecture Series 2003: On the Andrews-Curtis and Poincare Conjectures; April 10-12, 2003; Fayetteville, AR

Abstract

Award: DMS-0245047
Principal Investigator: Yoav Rieck

At the center of the proposed conference will be a series of lecture
by Professor Andrew Casson of Yale University. These lecture will
focus on two of the most important open questions in the fields of
topology and group theory. The first question, the Poincare
Conjecture, was posed by Henri Poincare almost 100 years ago. It is
concerned with the basic structure of very simple 3-dimensional
spaces; while the Andrews-Curtis Conjecture is about algebraic
structures, and is very relevant to the Poincare Conjecture. In
addition to a survey of existing approaches, partial results and open
questions related to these conjectures, these talks will attempt to
describe some intriguing similarities and differences between the two
conjectures. In addition, 10 leading experts from around the world
will deliver talks about their own work.

This conference will be the 28th annual Arkansas Spring Lecture
Series. The format of the lecture series is 5 one hour talks by a
world leading mathematician, accompanied by about 10 lectures of
invited experts, and several shorter talks by a variety of people,
including graduate students. This structure is valuable, particularly
for younger researchers, that get an excellent learning opportunity.
This year's Lecture Series is about 3-dimensional topology. The
importance of low dimensional topology has been growing in recent
tears, with numerous applications starting at robotics and control,
and ending with theoretical physics and cosmology. For example, one
intriguing question is what the shape of the Universe is. The
spherical shape of the earth was discovered two millennia ago, and yet
we have no clue as to the shape of the Universe. The work of
Professor Casson as well as other leading mathematician, may help
answer this question by leading astronomers is the right direction,
and helping design the right experiments to answer these questions.
Jeff Weeks, a McArthur Fellow, will discuss such experiments in a
lecture open to the public and using a language accessible to all.
This will give the public an opportunity to understand the work of
world leading mathematicians. Jeff Weeks talk should have great
educational value in motivating younger students to enjoy basic
research.